RUI: Market Models in Behavioral Economics

Financial economists have identified a series of features which seem to be puzzles for standard theory. For example, why do individual investors find dividends attractive? Why are returns in January higher than in other months? Do traders overreact to new information? Do stock prices exhibit excess volatility? Why are the returns to managed funds so decidedly inferior to index funds? This project uses behavioral theory to explain these puzzles. Behavioral economics differs from standard neoclassical economics in its departure from the particular assumptions which characterize the notion of rationality. The project develops a general Arrow-Debreu framework which admits both behavioral theory and standard neoclassical theory as special cases. The behavioral theory consists of prospect theory; heuristics used to make judgments about probabilities; and regret aversion. The corresponding neoclassical theory consists of the standard expected utility, general equilibrium framework. The analysis centers on the various uses of this framework in modern financial economics: the capital asset pricing model (CAPM), the arbitrage pricing theory (APT), and the efficient market hypothesis (EMH). The originality and high quality of the investigators' past research show that they have the ability to do the work. The research agenda is based in part on papers by the investigators on the payment of dividends to investors and on investors' disposition to realize capital gains on stocks too early.